A National Portrait of Organic Chemistry Instruction and Assessment Practices

This project seeks to serve the national interest by improving understanding of how organic chemistry, a key gateway course for science, technology, engineering, mathematics, and health pathways, is taught and assessed across U.S. colleges and universities. Each year, large numbers of students encounter organic chemistry as they prepare for careers in chemistry, medicine, pharmacy, engineering, biology, and other sectors of the workforce. Yet, the field lacks a national picture of what students are asked to learn, how instructors support learning, what kinds of thinking are rewarded on exams, and how instructors are responding to artificial intelligence tools that are rapidly changing teaching and assessment. This project will address that need by constructing a national portrait of organic chemistry instruction and assessment across institution types, including two-year colleges. This project will document the range of instructional and assessment practices currently in use, identify where learning goals and assessments are aligned or misaligned, and explain how instructors make decisions under real constraints such as large enrollments, coordinated multi-section courses, limited grading support, and concerns about artificial intelligence. The outcomes will include national benchmarks, open measurement tools, and practical resources that help instructors and departments design assessments that better support students’ ability to explain, reason with evidence, use chemical representations, and apply organic chemistry ideas in future coursework and workforce settings.

This project will use a convergent mixed-methods design that integrates a national instructor survey, systematic analysis of course artifacts, and semi-structured interviews. This work is guided by the Teacher-Centered Systemic Reform framework, which situates instructional practice within personal, contextual, and teacher thinking factors, and Expectancy–Value Theory, which explains how instructors’ assessment choices are shaped by perceived value, confidence, and cost. The first objective is to benchmark organic chemistry instruction and instructor use of artificial intelligence through an institution-stratified national survey. The survey will measure instructional format, adoption of research-based instructional strategies, organic chemistry-specific teaching practices, course context, and instructor uses of artificial intelligence for teaching and assessment. The second objective is to characterize learning objectives, assessment structures, opportunities for three-dimensional learning, and artificial intelligence positioning using course artifacts. The project will adapt existing three-dimensional learning and cognitive demand protocols for organic chemistry contexts, including mechanisms, synthesis, symbolic reasoning, molecular representations, and data interpretation. The third objective is to explain why observed national patterns occur and to identify feasible supports for improving assessment in an artificial intelligence-enabled environment. Semi-structured interviews will be purposively sampled from survey and artifact profiles and will examine instructors’ goals, constraints, values, expectations, grading practices, artificial intelligence policies, and perceived supports for change. Project success will be assessed through completion of national benchmarks, validated coding protocols, explanatory models, practitioner-facing briefs, and reusable resources. Results will be disseminated through peer-reviewed publications, national conferences, faculty learning communities, and concise guidance for artificial intelligence policies. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.